Collaborative NSF/ASEE Poster Sessions

This proposal supports a highly visible dissemination outlet for grant holders in the Course, Curriculum, and Laboratory Improvement (CCLI) and Advanced Technological Education (ATE) Programs. The PI is organizing a poster session at the American Society for Engineering Education (ASEE) Annual Conference in June of each of the next three years (2003-2005). He is inviting grant award recipients from one or two years earlier to submit an abstract for inclusion in the poster session.